Enabling Highly Sensitive and Specific Detection from Undiluted Blood Using Paper Sensors

Point-of-care devices require simple yet inexpensive platforms with high
sensitivity from complex media. Paper is the least expensive platform for assay
development and often allows results to be obtained faster than conventional sensors.
Current efforts to improve paper-based detection technologies rely on physically
adsorbed ligands (with limited ligand amount and activity), rely on blocking agents to
passivate nonspecific protein adsorption (with limiting detection sensitivity and suitable
only for simple media or diluted samples), and suffers from low sample retention due to
the rapid evaporation of samples (typically receiving less than 50% of the original
sample in the detection zone). Zwitterionic poly(carboxybetaine) (PCB) surface coatings
have been able to achieve highly sensitive and specific detection from undiluted human
plasma and serum. The objective of this work is to realize inexpensive, yet highly
sensitive paper-based detection from complex media using zwitterionic chemistry.